U.S.-Netherlands Cooperative Research on Nitrate Uptake in Membrane Vesicles of Escherichia Coli

This award provides partial support for a long term sabbatical visit by Professor John J. Rowe, University of Dayton, to the Department of Microbiology, University of Groningen, the Netherlands, where he will collaborate with Professor Wil Konings. They will apply new techniques to study the process of nitrate transport during anaerobic nitrate respiration. Their long term objectives are to define the mechanism(s) for nitrate uptake, and to develop a data-based model for the regulation of nitrate uptake by oxygen and nitrite. Professor Rowe has experience in the area of procaryotic nitrate reduction, and nitrate metabolism in general, and has recently become interested in nitrate transport and its regulation by oxygen. Professor Konings possesses expertise in the complementary areas of bioenergetics and transport of solutes in procaryotes. He has developed an energy transducing proteoliposome system that is applicable to the nitrate transport problem and that will allow definitive studies of this system for the first time. Dr. Rowe will initiate joint research in the Netherlands during his sabbatical, and learn these new techniques to enable him to continue such experimentation back in Dayton. Anaerobic nitrate respiration is common to a great number of bacterial genera including organisms of agricultural, environ- mental, and medical significance. As the concluding step of one turn of the nitrogen cycle, it is of major significance to nitrogen cycling from a global to a microniche level. Nitrate respiration is coupled to the expulsion of protons across the cytoplasmic membrane thus generating respiratory energy under anaerobic conditions. Very little information is available about the mechanism of nitrate transport across biological membranes during nitrate respiration. In part this was due to the need to use complex, whole cell experimental systems which yielded ambiguous results; there also has been a lack of suitable radioisotopes of nitrogen and oxygen for such studies. These problems have recently been overcome by the development of sensitive nonradioactive methods for analyzing nitrate and nitrite and also the creation of more defined experimental systems comprised of proteoliposomes fused with biological membranes. Thus the time is right for these investigators to join forces to tackle a very important problem in microbial physiology.